Measuring Comovements at Different Business Cycle Frequencies and an Alternative HAC Covariance Estimator

Wouter den Haan University of California, San Diego SBR-9514813 The research will attempt to refine and formulate estimators and descriptive statistics useful in macroeconomic research. Part of the research will emphasize empirical research, other parts will emphasize econometric methodology. The specific areas to be investigated, which are highly technical, include business cycles, long variation in macroeconomic variables and forecast errors. Research of this type will produce econometric tools which will allow macroeconomists to more accurately analyze the economy.